Collaborative Research: Testing Channel-flow Models Using Mid-crustal Rocks of North Himalayan Gneiss Domes

Recent models suggest that the middle crust beneath the high Tibetan
Plateau flows southward toward India because of the difference in
topography between Tibet and India; the models further suggest that this
extruding material emerges at Earths surface in the high-erosion area
of the Himalaya. These models make specific predictions about how the
flow varies in magnitude and direction with depth. This project uses
structural geology and geochronology to test these predictions to see
whether the models are correct, and if they are not, how the models
might be refined. This is an important test to conduct because the
India–Asia collision is Earths largest ongoing continent collision and
serves as an important lens for viewing older continental collisions that
happened throughout Earths history.

Researchers Jeff Lee of Central Washington University, Bradley Hacker
from the University of California Santa Barbara, and their students will
investigate the spatial and temporal distribution of kinematics,
vorticity, finite strain, and deformation temperature in strongly
deformed middle crustal rocks exposed in the North Himalayan gneiss
domes, southern Tibet, using structural petrology, finite-strain
analysis, electron-backscatter diffraction (EBSD), and metamorphic
monazite geochronology. This research is motivated by recently
formulated thermal, mechanical channel flow/extrusion models that
postulate that the middle crust exposed in the high Himalaya and
southern Tibet was a low-viscosity, ductile material, bounded above and
below by coeval normal- and thrust-sense shear zones, respectively, that
flowed and extruded to the south. Flow within a channel can range from
pure Couette flow to Poiseuille flow, or be a combination of the two.
The investigators and their students will document the deformation and
timing during ductile flow to provide a comprehensive spatial, thermal,
and temporal history of deformation and flow in middle crustal rocks
in southern Tibet. These studies, combined with similar published and
ongoing studies in the high Himalaya, will provide an unprecedented
view of middle crustal flow parallel to the transport direction over
a distance of 50 to 100 km.